Phase Transitions, Magnetic, and Electrical Properties in Iron-Oxide, Zinc Ferrite, and Titanomagnetite

This renewal proposal requests continuing support to complete a study of synthesis, single crystal growth, sample preparation and measurement techniques to investigate features of phase transitions by delicate compositional alterations, and to complete a theoretical framework describing the nature of the Verwey transition in magnetite.